III-COR-Medium: Design and Implementation of the DBO Database System

Commercial and government entities now spend around $10 billion per
year on software and hardware systems for managing "data warehouses",
which are very large electronic data archives. Despite the size and
importance of this marketplace, existing data management solutions can
be painfully slow (see, for example, www.tpc.org/tpch/ for recent
benchmarking results). It is now possible to spend millions of dollars
of hardware and software for a system that still takes hours to answer
simple analytic questions. This is unfortunate, because there is much
knowledge to be gained by interactive exploration of electronic
archives. Very long processing times make it likely that the data will
stored away, and never looked at again.

The DBO Database System project is concerned with the design and
development of a unique system called DBO. Like traditional
relational database systems, DBO can run database queries from start
to finish and produce exact answers over very large archives. However,
unlike any existing research or production system, DBO uses sampling
algorithms to produce a statistical estimate for the final
query answer at all times throughout query execution. An example of
the sort of estimate produced by DBO is, "There is a 95% chance that the
true answer is between $1.75 million an $1.80 million". The longer a
user waits, the more accurate the estimate becomes. The potential
benefit of such an estimate is that a user can stop execution whenever
satisfied with the accuracy of the estimate, which may translate to dramatic
time savings during exploratory processing. In this way, the goal of
the DBO project is to render interactive data analysis a reality, even
over the largest databases.

All scientific and technical materials produced by the project, as
well as any software available for download, can be obtained from
http://www.cise.ufl.edu/~cjermain/DBO .